CAREER: Investigating the Petrological and Geochemical Record of Fluid Migration in the Subduction Interface

Subduction zones occur at convergent plate boundaries where one tectonic plate slides underneath another. Subduction zones host some of the world's most hazardous and intense seismic and volcanic activity. This project investigates the sources of subduction zone fluids, the scale of fluid migration, and fluid interactions with surrounding rocks in the deeper sections of subduction zones. Educational programs of this proposal include activities for K-12 Science teachers and a STEM Career & Summer Enrichment Academy.

The goal of this proposal is to assess whether pervasive fluid circulations in serpentine-bearing subduction complexes are restricted to limited focus areas or migrate up-dip over kilometer scales, triggering chemical alteration in the subduction interface. It also aims to test fluid sources and mixing and assess element partitioning during fluid-rock interaction. To resolve this, samples of high-pressure – low-temperature (HP-LT) vein-related rocks and metasomatized eclogites from six localities representing warm and cold subduction gradients were selected. This project involves four sequential tasks: (1) conduct a detailed petrological assessment to characterize fluid-rock interactions at depths of ~25-60 km; (2) constrain the pressure-temperature-time of key samples to reconstruct the depths and timing of fluid-rock interaction; and combine (3) whole-rock geochemistry and Sr-Nd-Pb isotopic analysis, with (4) in-situ trace elements in hydrous minerals, to constrain the signatures, sources of the fluids, and element partitioning during fluid-rock interaction. This proposal includes two Educational activities: (a) broadening the participation of youth in geoscience by conducting STEM Career & Summer Enrichment Academies for K-12 Youth and (b) increasing K-12 Science content knowledge and pedagogy through a professional teacher development workshop focused on curriculum materials aligned with newly adopted for Science and Next Generation Science Standards. Other broader impacts include teaching, mentoring, and training undergraduate and graduate students, enhancing community petrological collections, and disseminating findings in local and international geoscience communities.